Mathematical Sciences: Research Briefing on the MathematicalSciences Applied to Materials Science

This project supports a workshop and briefing paper to be done by the National Academy of Sciences on the research interface between the mathematical sciences and materials research. The briefing paper will be used in planning at the National Science Foundation and will be distributed to other Federal agencies and industrial groups that fund research in the mathematical sciences and materials science. The project has particular promise for identifying research opportunities at the interface between the mathematical sciences and materials science. Materials science applies techniques of chemistry and physics to real materials. Current research depends upon correlations that have been arrived at through exhaustive laboratory experiments and simulations. Mathematical models of composite materials hold the promise of predicting strength, flexibility, and electrical resistance of a proposed composite without conducting extensive testing.